Theoretical Studies of Interplanetary Magnetic Fields, Turbulence, and Cosmic Rays

This three year study is concerned with theoretical aspects of basic solar wind properties and their effects on cosmic rays. Such studies are important analyzing the influence of highly energetic particles transmitted through the interplanetary medium on the terrestrial environment. The investigation will include studies of the large scale morphology of the interplanetary magnetic field and plasma, with particular emphasis on the effect of the field's structure on cosmic ray and energetic particle acceleration, propagation and anisotropies. ***//